RMT Workshop

This award is for support of a workshop on Random Matrix Theory (RMT), to be held at NSF on November 12-13. RMT is a rapidly developing field with significance to many areas of mathematics and physics.